Collaborative Research in Decision, Risk, and Management Science: Risk Attitudes and Changing Reference Points

ABSTRACT Birnbaum, Michael H. California State University at Fullerton SBR-9410572 In collaboration with Ward Edwards (SBR-9409698) the PI proposes to study risk attitudes. The PI will investigate the behavior and attitudes of people who participate in "The Big Spin," which is the California State Lottery's TV show. The PI will be given access to the participants before, during, and after their participation in the televised portion of the lottery. The risk attitudes of these persons will be compared at various time periods, and their responses will also be compared to the responses of a control group of non-participants. A one-year follow-up of all participants is included in the design.